Internally Reinforced Rayon Fibers

A new fiber has been demonstrated that has a synergistic combination of synthetic fiber mechanical properties and natural fiber surface properties, as contrasted to the normal averaging of properties obtained from blends of synthetic and natural fibers. Textile fabrics produced from this fiber should maintain the crease and tear resistance of the nylon core, yet have the water sorphirity and dyeability of the rayon skin. The goal of this research is to use this unique fiber as a model to relate the surface and bulk properties of fibers to the properties of the yarns and fabrics to which they will be converted. The material properties of these fibers, yarns, and fabrics will in turn be related to the processing conditions used to produce them. In order to produce sufficient quantities of the fibers for conversion into test fabric pieces. Multiple filament dies will be designed using CAD/CAM.